Travel: Student Travel Support for Workshop on Quantum Signal Processing during IEEE Quantum Week 2026

The IEEE Quantum Week, which is also known as the IEEE International Conference on Quantum Computing and Engineering (QCE), is the premier global platform for advancing quantum computing and engineering, bridging the gap between quantum science and industry, and fostering collaboration across research, development, and commercialization. The 2025 QCE attracted more than 1750 attendees from academia, industry, and government. The 2026 QCE, to be held in Toronto, Ontario, Canada on September 13-18, 2026, is expected to have a similar number of attendees. To advance next-generation advanced signal processing in the quantum era, this Workshop on Quantum Signal Processing will bring together researchers in quantum computing and researchers in classical signal processing and information theory to develop a shared language, identify common principles, and chart emerging research frontiers at their intersection. To support the training of next-generation scientists and engineers working on quantum signal processing, this NSF grant will provide travel support for 25 students and 10 postdoctoral researchers to attend the workshop and conference. The awardees will be recruited and selected by the workshop organizing committee. The travel support will benefit their career developments and contribute to the U.S. quantum engineering workforce development.

The 2026 IEEE QCE is financially co-sponsored by IEEE Quantum Technical Community, IEEE Computer Society, IEEE Technical Community on Software Engineering, IEEE Photonics Society, and IEEE Council on Superconductivity, with technical co-sponsorships from IEEE Technology and Engineering Management Society, IEEE Electronics Packaging Society, IEEE Signal Processing Society, IEEE Electron Device Society, IEEE Consumer Technology Society, IEEE Power & Energy Society, and IEEE Entrepreneurship. The support by many IEEE organizations illustrates strong multidisciplinary interests on this topic. The Workshop on Quantum Signal Processing will have three sessions featuring nine invited talks, followed by a session of discussion and brainstorming. There will also be a concurrent poster session during the workshop to further stimulate interactions among participants. Students and postdoctoral researchers attending the workshop can also attend other meetings and events during the IEEE Quantum Week, broadening their networking with a large number of attendees and their learning of the latest developments in quantum information science and engineering.